Computer Enhanced Undergraduate Physics Laboratories

This award is made as part of the Instrumentation and Laboratory Improvement program. This program funds innovative new projects for undergraduate physics laboratories. The Principal Investigator of this project is Dr. Burr of New Mexico State University.